Have you spotted me: Learning lessons by looking for ladybugs

"Have You Spotted Me? Learning Lessons by Looking for Ladybugs" is an innovative citizen science project that targets children from Native American, rural, farming, and disadvantaged communities. While most citizen science efforts target teens and adults, this project enables youth ages 5-11 to contribute to the development of a major ladybug database. Adult mentors in youth programs introduce children to topics such as ladybugs, invasive species, biodiversity, and conservation. Youth not affiliated with a program may participate independently. Project deliverables include a self-contained education program, an Internet portal and project website, a dedicated corps of volunteers, and the largest, accessible biological database ever developed. The database is made more reliable by utilizing records accompanied by an identifiable data image as a certified data point. Partners include the NY State 4-H, South Dakota State 4-H, Migrant Worker Children's Education Program, Cayuga Nature Center, Seneca Nation Department of Education Summer Programs, Seneca Nation Early Childhood Learner Centers After School Program, and the Onondaga Nation After School Program. Strategic impact will be realized through the creation of a citizen science project that provides hands-on interactions, field experiences, and accessible data that creates unique learning opportunities for youth. It is estimated that nearly 10,000 youth will be impacted by this work.